POWRE: Quaternary to Recent Basin Development and Neotectonics of The Central San Jacinto Fault Zone, Southern California

9805794 Dorsey The San Jacinto fault zone represents high seismic hazard in California. This POWER project will enable the Principal Investigator to make a significant career move into integrative study of young sedimentary basins and basin-bounding faults in activity deforming zones.